Quantum Invariants and Representations of 3-Manifold Groups

DMS-0207030
Charles D. Frohman

The PI will work on a number of projects in low dimensional
topology and its applications. These projects include
investigating various properties of the Turaev-Viro
invariants including the construction of universal
polynomials relating the representation theory of the
fundamental groups of manifolds to these invariants and the
extension of these invariants away from the unit circle.
In addition, the PI will consider, given a tetrahedral
decomposition of a knot, how one may define a rigorous
path integral over the space of cross ratios of the tetrahedra
to compute the Turaev-Viro invariant of an integral surgery
on the knot. The PI will also investigate the structure of
the Kauffman bracket skein module in terms of the geometry
of character varieties,and, more generally, use quantum
invariants in the study of Dehn surgery on knots. Finally,
this award provides support for the PI's graduate students
to assist him in this research.

Topology is a kind of geometry where the congruence
transformations do not preserve metric properties such
as distance and angle. The objects the PI studies are
given as the result of gluing together polyhedra along faces.
To know when two such objects are different topologically one
needs to make measurements that are unchanged by
topological congruence transformations. An example of
such a measurement is the Euler characteristic of a
surface, which is the number of vertices minus the
number of edges plus the number of faces. If two surfaces
are topologically equivalent they have the same Euler
characteristic. One of the most celebrated theorems of
geometry is the Gauss-Bonnet theorem which relates the
Euler characteristic of any surface to a quantity
computed metrically. Quantum invariants of three manifolds
are like Euler characteristic, but more delicate. They
are constructed statistically from a probability space
made up of "states" which come from the description
of how polyhedra are glued together to form the object.
The PI's work is about relating these invariants to
metric quantities derived from the geometry of the
underlying object. To this end, the PI shows that
the space of states can be replaced by spaces of
geometric measurements made on the object. The goal
of the project is to see how the geometry and topology
of the object are determined by its combinatorial
description in terms of polyhedra.